Neurobiological Rewards in the Evolution of Endurance Running in Humans and Cursorial Mammals

Ever since Darwin, researchers have viewed the origins of bipedal walking as a defining event in human evolution. Recent research suggests that, while bipedal walking was an essential element of early hominin evolution, endurance running (ER) may have played an important role in the origins of the genus Homo. However, the ER hypothesis has not been fully tested and, given its possible significance for human evolution, deserves a more complete examination. This study presents a novel test of the ER hypothesis by examining the neurobiology of running in humans and running mammals. Human runners often report neurobiological rewards during and after running bouts (frequently termed the "Runner's High") that play a major role in both their motivation to run, and increase their ability to sustain high aerobic intensities over long distances. These neurobiological rewards include feelings of happiness, euphoria, well-being, anxiety reduction, and reduced pain sensation, which appear to be caused by the release of endocannabinoids (eCBs) into the bloodstream and brain. ECBs are endogenous compounds that activate cannabinoid receptors in both the peripheral and central nervous systems and lead to neurobiological rewards and pain reduction. It is possible that selection could have generated ER in several mammalian lineages by linking locomotor activities with eCB signaling and therefore, with neurobiological rewards. Evidence of the convergent evolution of neurobiological rewards for ER in humans and other cursorial mammals would strongly support the hypothesis that human ER capabilities are the products of natural selection. This study will test the hypothesis that exercise-induced eCB signaling evolved convergently in humans and cursorial mammals to motivate and reward running behaviors. ECB levels will be measured before and after running in a sample of cursorial mammals (humans and dogs) and non-cursorial mammals (mice and ferrets). The ER hypothesis will be supported if eCBs increase significantly after distance running in cursors compared to non-cursors. In addition, mood assessments will be given to human runners to examine the correlation between eCBs and neurobiological rewards.

This study will provide critical new data testing the hypothesis that endurance running played an important role in human evolution. This is the first study to examine the convergent evolution of neurobiological rewards for running in humans and other mammals and thus, represents a novel test of the ER hypothesis. If neurobiological rewards evolved convergently in humans and other mammalian cursors, then ER likely played an important role in human evolution. Additionally, this study will have important implications for the motivation and evolution of animal migration. Additionally, this study will have important implications for human mental health disorders. The mental health community has begun prescribing exercise to treat depression, anxiety, and other mental health disorders. Exercise may relieve depressive symptoms through endocannabinoid signaling since this pathway acts as an anti-depressant in animal models. This study will provide critical new information regarding how and why exercise may alleviate symptoms of these disorders. This study will also provide numerous training and research opportunities for graduate and undergraduate students at the University of Arizona and UC Riverside and will improve research infrastructure between the Departments of Anthropology and Pharmacology at the University of Arizona. Finally, this project will open new collaborations between the University of Arizona, University of Texas Health Science Center, San Antonio, and University of California at Riverside.